Florida Collaborative for Excellence in Teacher Preparation

The Florida Collaborative for Excellence in Teacher Education Program (FCETP)
is building a state-wide model of interdisciplinary and institutional
cooperation for improving the preparation of future K-12 teachers. The
collaborative is centered at Florida A&M University and includes over twenty
institutions representing many of the state's research universities, four-year
colleges, and community colleges.

These institutions include Florida State University, the University of
Florida, University of South Florida, University of North Florida. the
University of West Florida, the University of Central Florida, Florida
International University, Bethune-Cookman College, Tallahassee Community
College, Miami-Dade Community College, and Florida Community College at
Jacksonville. In addition, area school districts and educational organizations
which support the preparation of mathematics and science teachers support
the major components of this project.

This inititative focuses on aggessive recruitment of students to teaching
careers, and improvements in pre-service and in-service education. Program
goals are:

o increase significantly the number of high-achieving high school graduates who
enroll in and receive baccalaureate degrees from science, or mathematics
teacher education program;

o establish an effective community of SMET faculty from participating
institutions, and work towards increasing the frequency and effectiveness of
communication among these faculty and participating teachers and students;

o implement of develop a core of mathematics and science courses for
pre-service teachers that are inquiry-based and taught in cooperative learning
environments; and

o create a model of teacher training that also incorporates summer mentoring of
FCETP students and early sustained classroom experiences.

The FCETP Project is being evaluated by an external evaluator with assistance from FCETP staff.